Research On Design Evaluation Of Image Processing Systems For Pattern Recognition

This two year continuing award supports software capitalization for the continued development of benchmarks for evaluation of image processing systems. The tasks include investigation of the performance of new system designs and design modifications, concentrating on massively parallel architectures and the "software" image processing systems which run on high-performance workstations under UNIX, MS/DOS, and Apple Macintosh operating systems; expansion of the Preston-Seigart benchmark research to include a larger segment of the image processing community; and conduct of a trend analysis on hardware and software architectures to determine what areas of image processing research are likely to produce the most cost-effective platforms. The results of this project will be fed back to the participating organizations and also disseminated through professional publications, conference presentations, and liaison with professional society and industrial standards committees.